Cluster Diffusion in Metastable Solutions; Ninth International Conference on Crystal Growth (ICCG-9) held August, 1989, in Sendia, Japan (Supplement)

The rapid decline of diffusion coefficients in supersaturated solutions is examined in terms of the formation of molecular clusters. Preliminary experimental work has shown that diffusion coefficients in metastable supersaturated solutions vary with the "age" of the solution. In this work, the investigators experimentally examine the diffusion coefficients of supersaturated solutions made from solid nonelectrolyte and solvent as a function of solution "history" and "age." The experimental results is compared to theoretical predictions based on theories of cluster evolution and cluster diffusion in metastable solutions. Transport properties of low molecular weight (non-polymer) solutions are usually considered to be functions of variables such as concentration and temperature. Normally, the temperature "history", physical treatment, or "age" of a solution have not been thought to affect the properties of such a solution. Metastable solutions, however, present the novel situation where "history" and "age" could be used to alter properties of a solution such as the diffusion coefficient. Understanding the role of "history" and "age" on cluster formation and the diffusion coefficient could lead to innovative methods for crystallizer design and innovative new separation techniques.